Competitive Nonlinear Business Cycles - II

Recent works have shown that the presence of multiple equilibria is a very pervasive phenomenon for dynamic economic models. This project attempts to solve the puzzles implied by the occurrence of multiple equilibria by studying the interaction between the fundamental characteristics of the economy and the traders' given learning process. The ultimate aim is to discover whether long run equilibria that are stable for a large class of plausible learning processes, are in fact characterized by a few simple, universal characteristics of the economy. The project also continues the development of the theory of business cycles, or more precisely the conditions of the occurrence of so-called sunspot equilibria. Sunspot equilibria occur when the beliefs of economic agents about the economy become self-fulfilling. For example, if economic agents believe that changes in the sunspots affect the economy, then the economic performance will correlate with changes in sunspots although sunspots don't directly affect the economy. Current research on "sunspot" equilibria and business cycles has focussed primarily on competitive economies. The basic mechanism to generate fluctuations are interest rate or wage shocks to the economy. This project investigates the conditions under which such business cycles arise when one introduces noncompetitive features in product markets (e.g. Cournot oligopolies) and in the labor market (e.g. efficiency wages or implicit contracts). Current research suggests that money shocks will only affect the rate of inflation and not the real economy. This project attempts to show that the same conditions that lead to sunspot equilibria also imply that proportional changes in money supply will affect the real economy. The preliminary results will be generalized and economies with imperfect information will be studied.